Workshop on Research Issues in the Integration of Heterogeneous Database Systems

The workshop on Research Issues in the Integration of Heterogenous Database Systems will bring together a small group of approximately forty participants including both designers and users of large heterogenous systems that require integration. The objective of the workshop is to provide new perspectives on theoretical and experimental issues on this timely topic and to identify the basic research needed before the next generation of distributed heterogenous database systems is built. The workshop will examine the technical issues that arise in designing multidatabase or federated database systems where the individual systems have various degrees of autonomy and different capabilities. Some of the topics to be discussed are semantic heterogeneity and schema integration, transaction processing, and query processing.